SGER: Workshop on Global Priorities for Coelacanth Research and Conservation in the 21st Century in Indonesia on October 23-27, 2000.

This project will support a Workshop on Global Priorities for Coelacanth Research and Conservation for the 21st Century. The workshop will bring together experts, policy makers, conservationists, and active researchers on coelacanth biology for the purpose of quantifying the present state of knowledge of coelacanth biology, and ensuring the continued survival of these ancient fish. Thought to have been extinct for millions of years, the chance discovery of coelacanths in 1938 has focused much research and interest on their biology. A recent, highly unexpected finding of a new species in Indonesian waters has prompted numerous research questions regarding geographic range, dispersal, gene flow, and speciation. The workshop results will be made available on the web, and in a printed volume.